Mathematical Sciences: The Quebec-Vermont Number Theory Seminar

This grant supports the Quebec-Vermont Number Theory Seminar. The participants in this seminar come from both research institutions and principally undergraduate institutions in both the United States and Canada. This grant will allow the seminar to continue its tradition of inviting outstanding number theorists to report on the most exciting new results thereby benefiting the research of the student and faculty participants. Number theory, the study of the properties of the whole numbers, is the oldest branch of mathematics. In modern days, problems in number theory have furnished the driving force to creation of new mathematics in the fields of pure algebra, analysis, and geometry; some of the most recent and most astonishing applications of number theory have appeared in theoretical computer science and coding theory.